Conference: Invitation to Mathematics

The Historically Black Colleges and Universities - Undergraduate Program (HBCU-UP) supports conferences that seek to increase the research capacity of science, technology, engineering, and mathematics (STEM) students and faculty at HBCUs. Texas Southern University will host a Conference on Invitation to Mathematics at Texas Southern University on September 8-9, 2018. About forty faculty and students from Prairie View A&M University and Texas Southern University will attend this conference.

Through the activities of this conference, undergraduate students will be exposed to mathematics research and techniques and gain a perspective on relations between mathematics and and other fields of science. Areas of mathematics to be discussed are: statistics, operations research, mathematical biology, and algebra. The conference will consist of research talks by mathematicians, a poster session for students, and a panel discussion with researchers and representatives from industry. The conference is to bring together scholars, researchers, educators, students and professionals. A key objective is to provide undergraduate students the opportunity to interact with a group of researchers and to learn about research and career opportunities in various fields of mathematics.